Study of State Research and Development Expenditures

9421933 This project is for the study of all state research and development expenditures for Fiscal Year 1994. The project will test a model for collecting accurate information on an annual basis. The approach described is to collect information through close interaction with all 50 states, as well as selected regional groups and national organizations dedicated to state issues. The resulting network of state officials will provide guidance to the overall research project while also collecting vital data through an extensive survey. Battelle will analyze the data, addressing a list of questions identified in the proposal and the course of the project concerning state research and development expenditures. Upon completion of the project, a structure will be in place for annual studies of state R&D activities. Also an accurate characterization of state involvement in research and development will be prepared for distribution to state and federal leaders in science and technology, science policy researchers and others interested in the patterns of U. S. research and development investment. The data and analysis will be of great value for policy formulation, program development and program evaluation.